Interactive Computer Graphics in Calculus

This project will support a microcomputer laboratory for the purpose of exploring the uses of interactive computer graphics in teaching calculus and developing laboratory activities for each of the courses in calculus at the University of the Pacific. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the stated goal of improving "the quality of the undergraduate curriculum by supporting projects to develop new or improved instrument-based undergraduate laboratory and/or field courses in science, mathematics, or engineering." Laboratory exercises will be devised and tested with the objectives of developing students' conceptual understanding, furthering their mathematical intuition and capacity for three-dimensional visualization, and promoting their interest in mathematics. Laboratory manuals will be published for each course in the calculus sequence.